Machine Learning Laboratory Experiences for Introducing Undergraduates to Artificial Intelligence

Computer Science (31)

This project unifies the artificial intelligence (AI) course around the theme of machine learning and creates a framework for core AI concepts around that theme. This is adapted from NSF-funded work at the University of Central Florida. The project develops and tests an adaptable framework to present core AI topics that emphasizes the relationship between AI and computer science in general. It is producing a laboratory manual that presents a suite of projects that can be closely integrated into a one-term AI course. The project involves faculty from three schools, and an additional 21 institutions have committed to using the results of this project when it is complete.